ASM Materials Camp for Teachers (MCT)

ASM Materials Camp for Teachers (MCT) is a program that provides education and training to in-service educators enabling them to incorporate material science lessons, labs and activities into their existing curricula. Teachers from high school science, math and technology departments spend one week in a program that introduces them to hands-on interactive activities that instill a deeper appreciation and understanding of common materials that students encounter on a daily basis. Using low-cost, no-cost, easily obtainable supplies, teachers learn to effectively demonstrate applied science principles as they teach and investigate a variety of materials. Integrating materials science and technology (MS&T) into the curriculum provides a tapestry of relevant real world learning for students.